Society for Industrial and Applied Mathematics (SIAM) Interdisciplinary Conferences in Applied Mathematics

This project is a series of Interdisciplinary Conferences in Applied Mathematics conducted by the Society for Industrial and Applied Mathematics (SIAM) over three years. The conferences are designed to bring together mathematical scientists, computational scientists, engineers, and applications scientists who are developing and applying new mathematical concepts, methods, and algorithms. A successful feature of this series is the inclusion of focused, interdisciplinary, academic/industry workshops. A new feature is a focus on workshops to encourage diversity in the mathematical and computational science workforce. The primary objective of the conferences is to initiate new interaction among the creators and users of the mathematical and computational science and thereby contribute to the understanding of mathematics and encourage its application to problems of society.